Recent Advances in Operator-Related Function Theory

This conference to be held at Trinity College in Dublin, Ireland, will focus on Recent Advances in Operator Related Function Theory. The unifying theme will be the use of spectral measures associated with self maps of the unit disk to investigate problems in operator theory and function theory.